Manufacturing Methods for Advanced Non-Contacting Seal Materials

The overall objective of this research to obtain the data necessary for the development of a manufacturing system which draws upon CAD-CAM to create self-acting seal face designs, and inscribes glassy-carbon composites with the requisite grooving configurations.